RUI: Purchase of a Scanning Electron Microscope and X-Ray Microanalysis System

This award will provide partial (25%) funding for the acquisition of a scanning electron microscope and x-ray analysis system by Southwest Missouri State University. The equipment will be installed in the Department of Geosciences and used primarily by researchers in that department and the Department of Biomedical Sciences. Research projects that will utilize the new system include: Cambro.Ordovician conodont evolution and stratigraphy, the study of factors affecting attachment of pancreatic necrosis virus to salmon embryos, and the geochemistry of weathering processes in rocks.